Engineering Research Equipment: A Laboratory Hot Press

9424324 Ma A laboratory hot press wil be purchased with funds partially provided by this grant. The main use of the press will be in processing nanophase powders, including consolidation of nanophase intermetallics and nanophase ceramics. A systematic study of densification and deformation behaviors will be carried out. Other powder processing projects will also benefit from the new equipment. ***